IUCRC Phase II University of Massachusetts Lowell: Center for Science of Heterogeneous Additive Printing of 3D Materials (SHAP3D) - Lead Site

The Industry-University Cooperative Research Center (IUCRC), Science of Heterogeneous Additive Printing of 3D Materials (SHAP3D), will serve the diverse interests of industry, government, and academia to address fundamental research challenges to meet the needs of industry for enabling heterogeneous 3D printing of multiple materials. Its mission is to perform pre-competitive, industry-oriented research to additively manufacture heterogeneous products with diverse functionality via integration of novel materials across all material classes, complex structures, and cutting-edge processes. SHAP3D’s industrial partners represent all sectors of the additive manufacturing (AM) supply chain, including materials, machines and processes, designers, and end users in commercial sectors such as aerospace, defense, and consumer products. SHAP3D will tackle real-world problems and help educate the future workforce. The SHAP3D Center will advance fundamental understanding and create economic value for industry by: (a) enabling the rational design, creation, and use of new materials, geometries, processes, and performance associated with additively manufactured products; (b) generating this knowledge through close collaboration between university and industry/government partners; (c) establishing a synergistic network of excellence in AM knowledge, experience, and facilities of added value to each partner; and (d) training students as the next generation of industry leaders in AM. The University of Massachusetts Lowell (UML) site will contribute research strength in modeling, material characterization, processing, rheology, multi-material printing, and new materials for additive manufacturing. UML will educate the future workforce through integration of graduate and undergraduate students in research projects and formal education programs.

SHAP3D will perform essential research providing the fundamental knowledge for heterogeneous AM that integrates multiple engineering materials to enhance structure and functionality. SHAP3D will develop critical insight into the structure-processing-property relationships to predict, control, and create new materials and processes for heterogeneous 3D printing. The vision is to provide industrial participants with new, validated capabilities with tunable properties and superior functionality for use in real-world designs. The Center’s research activities aim to accelerate expansion and competitiveness of the domestic AM industry and its customers by addressing two critical market needs: (1) the growth of AM into more complex topologies, heterogeneous materials, and multi-functional applications commanding high margins commensurate with increased performance; and (2) the expansion of AM into lower margin industries via order-of-magnitude improvements in throughput, material-per-performance cost reductions, and ease-of-use and design rules. Industry members view these market needs from three economic drivers: (1) design concepts for integrating dissimilar materials into heterogeneous products for multi-functional components/products enabling new products and industries, (2) reduction in processing costs via optimized and parallel processes to additively manufacture products more quickly with higher resolution, and (3) use of complex geometries, high performance materials, and improved quality enabling diverse and lighter weight products to minimize total life cycle costs and environmental footprint. The key areas of the research strategy are: (1) the ability to print heterogenous parts using mixed printing techniques, (2) printing multiple materials by designing and structuring interfaces, (3) prediction of properties and the processes that will produce those properties, (4) enabling greater functionality, complexity and the ability to make things that cannot otherwise be made, and (4) improving sustainability and recyclability through AM.The UML site brings strong expertise in plastics manufacturing, nanotechnology, composites, and industry-oriented collaboration. The site will use this expertise to promote fundamental and applied research in AM process modeling, printing method advancement, and novel & enhanced materials. Education activities include training for graduates and undergraduates through activity in research projects and will include formal activities to enhance student training in interpersonal and transferable skills, (such as communication, public speaking, teamwork, and critical thinking).